Circulation Modeling of Continental Shelf and Slope Flow Fields

Two tasks will be completed to advance the understanding of circulation over the continental shelf and slope; data assimilation studies for the CODE II experiment using the Princeton/Dynalysis primitive equation formulation and continued research and development of intermediate models including comparisons with the Haidvogel model.